Analytical Ultracentrifugation as a Method for Identifying and Characterizing Src-Containing Multi-Protein Complexes in Cancer Cells

The goal of the research will be to involve science students from Saint Anselm College, an undergraduate teaching institution, in a meaningful research project incorporating state-of-the-art technology. All research will be conducted in the Industry/University Cooperative Research Center for Biomolecular Interaction Technologies (BITC) at the University of New Hampshire and will make extensive use of the fluorescence detection optical system on the BITC analytical ultracentrifuge. All data will be reported to BITC. The project will serve as a test of the new device, and it will help develop protocols for using analytical ultracentrifugation with whole-cell lysates.